Model Science Scholars

Scholarships are being awarded to two cohorts of twelve students who excel in science, demonstrate financial need, and are majoring in the biological sciences, chemistry, computer science, the geosciences or physics. The awardees are being selected from among the eligible applicants entering their junior year who are either already attending Parkside or transferring from regional two-year colleges. Scholarship recipients are being provided with living arrangements (a suite of shared apartments on campus) that facilitate cohort-building. Upper level science majors and science graduates are serving as mentors. The graduate mentors are aiding the student scholars to understand the professional skills needed, knowledge about career opportunities, and career preparation. Special efforts are being expended to increase the number of students from underrepresented groups majoring and graduating in STEM fields.